Collaborative Research: Biogeochemical Cycling of Particulate and Dissolved Organic Matter in the Arctic Ocean Using Molecular Markers

The project combines field and experimental approaches to investigate the sources,
transformations, transport, and fates of dissolved, particulate and sedimentary organic matter in the
Beaufort and Chukchi Seas. This project will take advantage of the specificity that molecular organic
markers of organisms and their processes can provide to understand how the Western Arctic shelves
produce, metabolize and sequester carbon, a question central for the SBI program. The proposed studies
are closely linked with proposed research in other SBI phase II projects as well as international programs to
give an integrated, pan-Arctic view of C and N cycling. The proposed research is directed by the
following central hypotheses: 1) On time scales of physical transport across the shelf-basin boundary and interior ocean (years to decades), terrestrial organic matter contains specific, conservative biomarkers that trace riverine discharge; 2) Biological processing in shelf waters dictates the molecular signatures of organic matter deposited in sediments and exported to the Basin; 3) Episodic marine primary production fuels benthic production.